The Beetles of the Virgin Islands (Coleoptera: Insecta)

The Coleoptera, or beetles, constitute the most diverse order of living organisms. They make up some 40% of all animal species, and occupy virtually every trophic position. They are important as pests, biological control agents, pollinators, and vectors of disease. They contribute to soil building and the recycling of plant and animal materials. Yet, it is impossible to find general works that allow the identification of the species of beetles occurring in any area of the New World tropics. Under this project, material will be collected and processed towards the eventual goal of a guide to the estimated 1,200 species of beetles in the Virgin Islands. In addition to new collections, a database will be built of all known material, and publications describing new species will be published.